Ball Formation Processes in Wire Bonding Apparatus

This project deals with the manufacture of integrated circuits. Specifically, it deals with the bonding of wire between proper junctions on the chip and terminals on the supporting lead frame. The bonding wire is heated by an electric discharge, melts, forms a ball and is pressed to the contacts to form a bond. Insecure bonds can result from improperly formed balls. Despite the ubiquity of the process in semiconductor chip fabrication, no fundamental study has yet provided understanding of the discharge and heat transfer phenomena involved. The object of this study is to provide a clear picture of the mechanisms involved and to establish the relationship between discharge parameters and ball quality parameters. Two undergraduate students will participate in this research.